Radar Studies of Low-Latitude Electrodynamics

The National Science Foundation supports a number of incoherent scatter radars spread in latitude from the polar regions to the equator. These facilities are used to study the upper atmosphere and ionosphere in order to understand the global changes that occur due to the impact of solar radiation and particles from above and tidal,gravity wave and electrical inputs from below. This project is a continuation of studies aimed at the understanding of the low and equatorial electrodynamics using data primarily from the incoherent scatter radars at Jicamarca,Peru and Arecibo,Puerto Rico, but also in conjunction with in situ satellite data. The main areas to be considered at this time relate to the response at these low latitudes to sudden changes at high latitudes, perturbations associated with magnetospheric and disturbance dynamo electric fields and comparison with various convection and electric field models. 8/16/89